Induction, Proof Management, and Related Research in Automated Deduction

The theorem prover Rewrite Rule Laboratory, RRL, and the proof management system Tecton are enhanced to make them useful for applications, especially where analysis of specifications and well-founded ordering play a crucial role in these applications, and large complex proofs often have to be constructed. RRL is a theorem prover based on rewriting techniques and completion which provides support for equational and inductive reasoning. Tecton is a management system, and it provides a menu-driven interface to the theorem prover and emphasized visualization of proofs. Tecton is extended to support a proof command language which a user control over proof construction and structuring. Tecton is useful for instructional purposes, for teaching theorem proving, methods for constructing proofs and verification. RRL is extended to enhance its theorem proving capabilities for proving properties by induction. The cover set induction method which has proved quite effective in automating proofs by induction, is further refined. Semantic methods for showing of rewrite systems of recursively defined functions, especially those arising in the specification of algorithms and data structures, are studied and further developed. Heuristics for checking the completeness of a cover set designed from a function definition are investigated. Heuristics for automatic lemma generation in RRL are expanded.